Collaborative Research: MSB: Defining Plant-Associated Metagenomics

All land plants grow in association with complex microbial communities both on above
ground plant organs (called the phyllosphere) and below the ground on roots (called the
rhizosphere). The relationships between a microbiota (the community of microbes
intimately associated with a plant) and its host can vary from pathogenic to symbiotic.
The microbiome (the set of genes encoded by any particular microbiota) can perform
ecosystem services by providing the host plant with critical nutrients, protection from
pathogens, production of functional plant hormones, and provision of tolerance to
stressors like heat. The plant, in turn, provides the microbiome with an improved
environment, including a complex array of energy sources released by deposition of
plant-based sugars into the soil. Decaying plant tissue and carbon-rich root exudates
redirect large amounts of fixed atmospheric carbon to the soil, making the rhizosphere a
large carbon sequestration zone, important in the balance of carbon in a changing
environment. Site specific characteristics of climate and soil that influence the yield of
maize and other crops and the productivity of any plant community rely in part on the
respective rhizosphere microbiome. This research will ultimately lead to agricultural
practices designed to increase plant health and productivity, carbon sequestration, and
disease resistance through the rational utilization of the probiotic capacity of soils and
the local environment. The project team is a collaborative interdisciplinary group from
UNC-Chapel Hill, Cornell and the DOE Joint Genome Institute. The experiments to be
carried out will define the rhizosphere microbiota and associated microbiome using two
important model plant species: Arabidopsis thaliana, the premier model for rapid
discovery in plant biology, and Zea mays, the premier model for genetic dissection of
complex traits in crops. Data generated by the project will be made freely available (http://www.bio.unc.edu/dangl/lab/projects/Metagenome_2-3-10.htm; http://www.ncbi.nlm.nih.gov/Genbank/), and will provide starting points for a variety of deeper studies into the complexities of host-microbe interactions. The project will provide training opportunities for undergraduates, doctoral students and post-doctoral fellows.